Programming Language Foundations of Computation Theory

9619638 The research proposed focuses on algorithmic aspects of programming language theory and pragmatics, continuing the research agenda of the principal investigator. Further investigation is targeted on the area of optimal evaluation for lambda-calculus, concentrating on relevant cost models, the necessity of and possible improvements to bookkeeping for sharing, with applications to linear logic and game semantics. A long-range goal is to investigate optimal evaluation as a possible implementation technology for functional programming. In addition, work will be continued on syntactic approaches to parametricity and reasoning about polymorphic programs based on their types, on fixed-rank type inference, typed lambda-calculus as a venue for capturing complexity classes, and intensional properties of contraction of proofs to programs as a general technique for program synthesis. Some of the work will also be relevant to curriculum development, even at the undergraduate level. ***